MRI: Acquisition of a Multiparameter High-Speed Cell Sorter

0521223
Roberts
The objective of this proposal is to improve the resources available in a newly established flow cytometry facility at the University of Massachusetts Amherst by acquiring a FACSAria cell sorter. Acquisition of the FACSAria will impact a large number of faculty, students, and staff at five local institutions by allowing them to expand the scope of their research. The PIs identified 15 users with immediate use for the new equipment. The proposed projects are diverse within the life sciences. Extensive use of related equipment currently in the facility indicates that the FACSAria will be widely used. Regular training sessions and open houses will be utilized in recruiting more users. The management plan includes a sustainability plan. The university is currently recruiting faculty in a number of physical science and engineering disciplines. The availability of this state-of-the-art equipment will help to fill these positions with researchers interested in life science, thus opening up new collaborative opportunities